Expert Systems Research with the Knowledge Engineer's Workbench

The goal of this project is to provide undergraduate students with meaningful research experiences in order to encourage them to choose graduate careers in computer science. American University will select 10 students for the summer of 1990 primarily from minority groups from the Washington, D.C. area. Student activities will focus on the area of expert systems research. American University has developed a Knowledge Engineer's Workbench, an expert system prototyping environment. Students will use this workbench to design an expert systems parts library, to experiment with algorithms for inferencing, to create small knowledge bases, and to experiment with expert systems. They will be assisted by five AU computer science faculty.